Oxidation-Reduction and Homogeneous Catalysis of Organic Compounds by Metal Species

This grant from the Organic Dynamics Program supports the continuing work of Professor Jay K. Kochi at the University of Houston. The study will develop general concepts of chemical reactivity based on electron donor-acceptor interactions. The three principal methodologies in which electron-transfer will be induced are (a) chemical oxidants and reducing reagents, (b) electrochemical oxidation and reduction, and (c) photochemical quenching and charge-transfer excitation. Specifically, work will be carried out on: (1) application of the charge-transfer formulation to organic activation; (2) photo-induced electron transfer in charge-transfer ion pairs; (3) oxometals in high oxidation states as electron acceptors, (4) charge-transfer activation of hydrocarbon donors on metal oxide surfaces; (5) organometallic charge-transfer crystals and polymers. %%% In this project by Professor Jay K. Kochi the broad applicability of the electron donor-acceptor concept to a variety of organic and organometallic systems will be exploited to develop new synthetic procedures as well as catalytic oxidations both in solution and in the solid state. The utilization of the charge-transfer phenomenon in chemical dynamics especially of transient ions and radicals in solution and with potential application to solar energy storage and molecular memories and switches is included. The synthesis of various types of solid state charge-transfer complexes will be conducted because of their semiconductor and ferromagnetic behavior as well as their unusual optical and magnetic properties.